Improvement of the Chemistry Curriculum Through FT-NMR Spectroscopy

Fourier transform Nuclear Magnetic Resonance spectroscopy is being incorporated into the chemistry program. Acquisition of the instrument is modernizing the way NMR is taught in the laboratories associated with Physical, Organic, and Analytical Chemistry as well as the course for nonscience majors. In addition the Instrumental Chemistry and Spectroscopy lecture courses and the student research program are being impacted. The acquisition is consistent with the department's effort to provide state-of-the-art instrumentation for both the year long and summer student research program. On average since 1980, thirty-six chemistry majors (35% women) graduate yearly from the program with 20% going on to graduate school. Since almost all of the undergraduates enroll in research courses and are utilizing the instrument, it is having a positive impact on the continued competence of the chemistry majors. The grantee is matching the award from non-Federal sources.